The Grammar of Surmiran Rumantsch

What is lost when a language dies? Languages are becoming extinct at a
much higher rate than biological species, and each time this happens,
the connection of a people with their history, traditional knowledge
and cultural heritage is severed. Each language is a unique
combination of the possibilities offered by the human language faculty,
and each language that dies reduces the evidence available for the
nature of that faculty. Many of the world's endangered languages are
those of tribal peoples in remote places, but many more are spoken
right alongside what we think of as major languages. Indeed, this very
proximity is a major reason, in many cases, for the endangered status
of local or minority languages. With support from the National Science
Foundation, Dr. Stephen Anderson will carry out field studies of
Surmiran, one of five major forms of Rumantsch in Switzerland. Intense
linguistic pressure from speakers of Italian and especially German
makes it extremely difficult for the 3,000 or so speakers of this
language to maintain their Rumantsch identity. The language has a
number of features that make it quite important, though, both for the
study of Romance languages and for linguistic theory more generally.
For example, Rumantsch is the only modern Romance language that
consistently requires the verb of the sentence to appear in second
position, in a way similar to (but subtly different from) German.
Surmiran has a system of weak (or "clitic") pronouns that appear
together with a full expression referring to the subject under complex
conditions related to a number of other grammatical properties. The
language also has sound types that are quite unusual both in themselves
and in the ways they form groups (or clusters). In every area of its
grammar, Surmiran Rumantsch has something to show us about the range of
possibilities for human language that we might well never know if the
language disappeared before it could be investigated.

This project will provide documentation of the features of the language
at several levels. For linguists, technical analyses of its
peculiarities and their relevance to important theoretical issues will
bring a new set of data into discussion in the field. For speakers of
the language, a grammatical description will be provided which can play
a role in language courses in the educational system, as well as
providing a convenient reference. It is often the case that the mere
fact of devoting scientific attention to an endangered language can
have the effect of awakening pride and interest in the community, as
they realize that their language is not simply a marginal "dialect" but
a special and valuable kind of knowledge, structurally as rich and
varied as those with more prestige, and especially valuable to them as
the vehicle in which their own culture is expressed. In addition to
providing resources to these two communities, linguists on the one hand
and Surmiran speakers on the other, this project will also provide
opportunities for graduate students to participate directly in research
with both a basic and an applied character.